Statistical Methodology and Applications to Economics, Engineering and Genetics

An important objective of the proposed research is to
develop methods for gene mapping, i.e., the identification
of genomic regions containing a gene (or genes) affecting
a trait of interest in either humans or in experimental organisms.
Searching a parameter set for the location of one or more
signals in a noisy background arise in gene mapping where the
signals indicate the presence of a gene. Similar problems arise
in brain mapping, astronomy, and bioinformatics. An important
part of their solution involves the probability that a random field
exceeds a high threshold. A unified analytic approach and
sequential Monte Carlo methods will be developed to evaluate
these boundary crossing probabilities. Other methodological
innovations of the proposed research are new dynamic empirical
Bayes models and methods, sequential surveillance procedures,
and adaptive control schemes for input-output systems that may
undergo occasional abrupt structural changes.

The dynamic empirical Bayes approach under development has
applications to insurance rate-making, dynamic panel data in
economics, longitudinal data in biomedical studies, and risk
management. Sequential surveillance and adaptive risk control
are of timely relevance in the aftermath of the recent financial
crisis and oil spill disaster. Sequential Monte Carlo methods have
important applications to nonlinear filtering and to rare event
simulation in communication networks and risk management. Gene
mapping provides an important tool in the study of human diseases,
and in agriculture and animal husbandry. The broader implications
of the proposed research include (i) direct implications in genetics,
engineering, finance, insurance, risk management and surveillance,
and (ii) training of the next generation of scientists in academia,
industry, and government by developing new advanced courses and
involving graduate students in all phases of the research.